The Topology and Geometry of Hyperbolic 3-Manifolds

DMS-0203698
Richard Canary

The topology and geometry of hyperbolic 3-manifolds

Professor Canary will study the space AH(M) of marked hyperbolic
3-manifolds homotopy equivalent to a fixed compact 3-manifold M.
The interior of this space is well-understood due to work of
Ahlfors, Bers, Kra, Marden, Maskit, Sullivan and Thurston.
Roughly, the components of the interior are enumerated by
topological data and each component is parameterized by analytical
data. Thurston's Ending Lamination Conjecture predicts that points
in the entire space AH(M) can be classified by topological data
(coming from the marked homeomorphism type of the hyperbolic
3-manifold) and geometric data (which encodes the asymptotic
geometry of the ends.) Yair Minsky has made substantial progress
towards the resolution of Thurston's Ending Lamination Conjecture
in the case that M has incompressible boundary. Prof. Canary will
collaborate with Jeff Brock and Yair Minsky on a program to
complete the proof of this conjecture and a number of related
conjectures. Recent work, by Anderson, Brock, Bromberg, Canary,
Holt, McCullough and McMullen, has revealed surprising new
phenomena concerning the global topology of AH(M). Components of
the interior may bump (i.e. have intersecting closures) and
individual components may bump themselves. Prof. Canary proposes
to further study the global topology of AH(M). In particular, the
techniques used in the attack on the Ending Lamination Conjecture
will be used to study the continuity of the ending invariants.

The study of 3-dimensional manifolds employs tools from geometry,
topology, dynamics and complex analysis. It is the interplay of
these tools which gives the subject its rich flavor. A 2-dimensional
manifold or surface is a space which looks locally like 2-dimensional
Euclidean space; examples are given by the surfaces of familiar
3-dimensional objects such as doughnuts. Similarly, a 3-manifold
is a space that looks locally like 3-dimensional Euclidean space.
A Riemannian metric is a way of measuring distances and angles in
a manifold. For example, the universe we live in is a 3-manifold
with a Riemannian metric. Surfaces were classified in the 19th
century, and it was shown that all surfaces admit a beautiful
Riemannian metric of one of three types: Euclidean, spherical or
hyperbolic. The study of all possible such metrics on a fixed
surface was begun in the 19th century and has played a key role
in topology, complex analysis, Riemannian geometry and algebraic
geometry. Thurston revolutionized the study of 3-manifolds by
conjecturing, and proving in many cases, that every 3-manifold
may be canonically decomposed into pieces which admit metrics of
one of 8 geometric types. Hyperbolic metrics are the most common
and least understood class of such metrics. Prof. Canary will
study the space of all hyperbolic metrics on a fixed 3-manifold.